Travel: NSF Student Travel Grant for the Programming Languages Mentoring Workshop at ACM SIGPLAN Symposium on Principles of Programming Languages, 2027-2029

A Programming Languages Mentoring Workshop (PLMW) is organized as part of the ACM SIGPLAN Symposium on Principles of Programming Languages (POPL), the flagship conference in the field of programming language theory, and one of the premier conferences in all of computer science. The 2027 conference will be held in Mexico City, Mexico. Many POPL papers directly address administration priorities in artificial intelligence (AI) and Quantum computing. The impact of the award relates to providing opportunities for students to receive mentoring from leading researchers, and building the next generation of researchers and knowledgeable practitioners in programming languages.

The award's broader significance and importance include building international community, lasting professional connections to design novel programming languages and implement tools, and enhancing education of US students. The workshop also provides students exposure to and multiple opportunities to interact with leading-edge research and researchers. By supporting students, the workshop thus imparts training to the next generation of researchers in programming languages and systems and contributes to building a national workforce in these topics.